CRIF:MU Hardware and Cyberinfrastructure Update of a 400 MHz NMR

With this award from the Chemistry Research Instrumentation and Facilities: Multi User program (CRIF:MU), the Department of Chemistry and Biochemistry at the University of Oklahoma will upgrade a 400 MHz NMR spectrometer. The upgraded spectrometer will be utilized in research projects including 1) inorganic reactive sulfur species, 2) kinetic model for the partitioning of atherogenic oxidants in plasma, 3) natural product modulation of a-synuclein-related cellular toxicity, 4) organic and molecular devices:
isomerization of bistable [2]catenanes, 5) transition metal-mediated nitrogenation of hydrocarbons, 6) biomimetic chemistry of transition metal-poly(imidazole) complexes, and 7) lipoteichoic acid structure and dynamics. Students at several area colleges and universities will be access and control the instrument remotely via a cyberinfrastructure upgrade.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and biochemistry.